Research Initiation Award: Scheduling Task and Loop Parallelism on Message-Passing Architectures

9409695 Yang Efficient scheduling of computational task execution and data movement is essential to high-performance computing on massively parallel machines and workstation clusters. This research focuses on the study of graph scheduling algorithms and the run-time schedule executing methods for mapping program parallelism on message-passing architectures. The goal of optimization is to minimize the parallel time by balancing load among a limited number of processors, eliminating unnecessary communication and overlapping computation with communication. There exists two types of parallelism in a program, task parallelism is expressed as a collection of functional tasks with communication between them. The dependence structure is a directed acyclic graph (DAG). Loop parallelism is expressed as a collection of iterated computation with loop- carried dependence. The main research topics identified in this project are to develop scheduling algorithms for both task and loop parallelism and run-time methods to execute the scheduled graph, study the methods of loop transformation to help graph scheduling algorithm to explore more parallelism, apply these algorithms in scientific computing such as sparse matrix factorization and iterative methods, analyze the impact of program partitioning on scheduling performance. Research activities include developing and implementing algorithms for the above problems and evaluating the performance on parallel machines and workstation clusters, integrating these algorithms in a scheduling tool and distributing the implementation. ***